Establishment of an REU Site for Fundamental and Applied Electrochemical Studies

A REU program will be established that focusses on the use of electrochemical methods in the fundamental and applied studies of chemistry and chemical engineering. Specific areas involve solid voltammetric electrode surfaces, solid-state oxide electrode surfaces and battering electrode materials, diffusion and mass tranfer of oxygen, and unhibition of enzyme activity using electrochemical methods. The REU program will serve students from four.year institutions in the upper midwest where there is limited research opportunities. The student will be heavily involved in the research project but will also be exposed to all aspects of the research programs at the university. The faculty REU participants will present unformal seminars to the REU students on a regular basis. Cooperation among student participants will be facilitated by weekly group sessions. The REU experience is completed with a seminar presentation by the student and the submission of a written final report which could form the basis of a publication.